Developing an Electricity-specific Mixed-unit Input-output Model for Life Cycle Assessment and Energy Policy Evaluation

The objective of this proposal is to develop and verify a mixed unit life cycle analysis model of the US electric industry that includes environmental effects and the relationships to many major industries. The model will include both economic and energy/electricity flows. It is anticipated that this model will be a useful tool in energy and environmental policy decisions. Advances in the model will be due to including more interactions with other industries and a disaggregated (i.e. source-specific) power generation sector in the US. The model, if successful, will be an important tool for planners and policy makers.

Bruce K. Hamilton
2/24/10